Artificial Intelligence Logic Programming and Deductive Databases

The research covers theoretical investigations, experimental work, and practical techniques in logic programming and deductive databases. Research is conducted on extending well-founded semantics of logic programs to general well-founded logic programs and then to disjunctive well-founded logic programs. Their model theoretic, proof theoretic and fixpoint semantics are investigated. Proof procedures are planned for implementation. In deductive databases, alternative definitions of null values and to develop their model theoretic, proof theoretic and fixpoint semantics are investigated. Proof procedures that are developed are considered for implementation. In the area of disjunctive deductive databases, bottom-up and top-down computation methods are to be investigated, algorithms that are free of implications are studied, and finally the general case with implications is considered. Computing answers to negated queries and conditions under which one might reasonably compute answers in disjunctive databases are also investigated. In separate efforts, investigations into approximate answers to disjunctive logic programs and research in parallel inference systems are conducted. The research will be useful for the development of knowledge base systems and deductive databases in which the application requires disjuncts as part of the theory.